Scale Interaction of Deep Cumulus with Convectively Driven Weather Systems

The objective of this work is the effect cumular convection has on the large scale atmospheric circulation and the circumstances of the latter that seems to initiate the former. These feedback effects will be investigated using three dimensional numerical simulations with consequent regard for the scale of convective motion, and other essential boundary conditions. The results will be examined in terms of large scale forcing the spectral characteristics of convective heating.